RET-EEE- Recognize Exemplary Teachers - Expand, Enlist and Extend

This program will strengthen middle and high school science and mathematics teaching by joint efforts of exemplary teachers and college and industry scientists, engineers, and mathematicians. Twenty exemplary teachers will be selected for recognition and involvement in an ongoing program of materials development and teacher enhancement. The knowledge of ten of these teachers will be expanded through a summer work program in local industries. Industry and university scientists/engineers will be enlisted to form triads with the teachers to design and develop classroom materials and activities based on the industrial experience. Use of these materials in college teacher preparation courses and for inservice training of other local practicing teachers will extend the impact of the program. The ultimate objective will be to better prepare students for the world of work, whether they chose to enter that world immediately or wait until completion of some further post-secondary education. Cost sharing by the partners will total 67% of the NSF funding.